Cyclic, Diffusional, Separation Process

CTS-9413268 Linda P. Cornell University of Toledo ABSTRACT Research will be performed to optimize the design of a novel Cyclic Diffusional Separation (CDS) technology and evaluate its potential for separating proteins and other macromolecules. The CDS process couples transient diffusion with cyclic convection in order to obtain sharp separations even for species with similar diffusivities. Proof-of-principle experiments have been successful and theoretical modeling predicts that design optimization will further improve the performance. Using a modified apparatus, the hydrodynamic and dispersion characteristics will be examined, and separation factors measured. If successful, the technique will be useful for separating delicate chemicals and biochemicals from colloidal dispersions and macromolecular solutions. There is potential for significant impact on bioprocessing and environmental technology.